Dissertation Research: Transition to Domestic Economies

Under the direction of Dr. Geoffrey Clark, Ms. Jane Peterson will collect data for her doctoral dissertation. The goal of her project is to determine how social organization changed in the Near East over the period from ca. 15,000 to 6,000 years ago. During this time plants and animals were first domesticated and thus Ms. Peterson is attempting to relate changing social systems to a changing subsistence base. To accomplish this goal she will study three classes of data. First she will examine materials and site plans from a series of archaeological excavations. She will look at the patterning of activities as revealed by structures and artifacts on the ground and relate these to gender specific work. Secondly, she will take advantage of cultural data associated with human burials. With this information, she can attempt to relate the type and number of material remains to age and sex as revealed in skeletal materials. Finally she will analyze skeletons themselves. Bone responds to repeated stress and therefore those muscles which receive heavy use can be determined by examining them for increased thickness and growth at attachment regions. With this approach it is possible to reconstruct specific activities and relate them to gender and age. A central goal of archaeology is to understand how complex social systems develop. A major shift in both human subsistence and social organization occurred with the domestication of plants and animals and their incorporation into the human diet. Closely related to this are gross changes in patterns of social organization for with domestication sites become larger and many new traits such as pottery appear. While archaeologists know a great deal about the subsistence part of the equation, they do not understand on a detailed level how social organization was altered. The work by Ms. Peterson will provide new insight into this question. This research is important for several reasons. It will synthesize a large and diverse body of data. It will shed new light on the origins of complex society and will assist in the training of a promising young scientist.